Shipboard Scientific Support Equipment 2011, R/V Blue Heron

ABSTRACT

13 July 2011
Proposal Number: 1118204
Institution: University of Minnesota Duluth
PI: R. Ricketts

This proposal requests one Shipboard Scientific Support Equipment (SSSE) item for the R/V BLUE HERON; namely a new dual frequency echo sounder. This item will enhance navigational safety and provide greatly improved science support capabilities.

Broader Impacts: The University of Minnesota supports federally-funded scientific research on the Great Lakes and routinely exposes graduate and undergraduate students to the marine sciences. The R/V BLUE HERON is scheduled to complete over 50 NSF sponsored days in 2011.